Conference on Vector Bundles

Abstract

Principal Investigator: Bradlow, Steven B
Proposal Number: DMS - 0755229
Institution: University of Illinois at Urbana Champaign
Title: Conference on Vector Bundles

Mathematics researchers from US institutions will attend an
international Conference on Vector Bundles, to be held in Madrid,
Spain, for the period June 16-20, 2008. The conference will serve
as the 2008 annual meeting of the Vector Bundles on Algebraic Curves
(VBAC) group, an international network of mathematicians working on
research questions related to vector bundles and their moduli
spaces. The meeting will also honor the 70th birthday of Professor
S. Ramanan, a pioneer in the subject, and will form part of a
Semester on Moduli Spaces organized by a consortium of Spanish
mathematics research centers.

Vector bundles and their associated moduli spaces stands at the
crossroads of several areas of mathematics, involving ideas from
algebraic geometry, topology, differential geometry and gauge
theory. They have strong connections with theoretical physics, where
the interaction between geometry and string theory has sparked major
advances in both disciplines. After algebraic varieties
themselves, vector bundles are probably the next most studied
objects in algebraic geometry. The speakers and participants invited
to the conference described in this proposal include many of the
pre-eminent experts in the field.